COLLABORATIVE RESEARCH: Paleomagnetic and Detrital Zircon Analyses of Cretaceous Gravina Rocks, Southeast Alaska

9405463 Bazard An important problem in the tectonics of the Pacific Northwest concern the displacement and accretionary history of the Alexander- Wrangellia terrane of southeast Alaska and Coastal British Columbia. There is presently no consensus on the positions of the terrane during Jurassic through Paleocene time and tectonic processes by which the terrane was accreted to North America are controversial. This project, a collaborative effort between working at the University of Arizona and the University of Mississippi., will test various tectonic models of the area by paleomagnetic and detrital zircon age dating methods. Results should help place new constraints on the displacement and accretionary history of the Alexander-Wrangellia terrane.